Synthesis and Studies of Lanthanide-Transition Metal Complexes (Extended Arrays); Reactions of Metal Complexes with New Borane Ligands

Dr. Sheldon G. Shore, Department of Chemistry, Ohio State University, is supported by the Inorganic, Bioinorganic, and Organometallic Program of the Chemistry Division to synthesize and study lanthanide-transition metal complexes that form extended arrays and for the study of the reactions of metal complexes with new borane ligands. Materials that have direct lanthanide transition metal bonds and a series of compounds with cyanide and cyanate bridged lanthanide-transition metal backbones will be prepared. This phase of the program is designed to develop and expand avenues for the synthesis of polymeric, extended array complexes that incorporate both lanthanide and transition metals into a one, two, or three dimensional arrangement of metal moieties. Secondly, the reactions of lanthanide ions with new borane anions that are isoelectronic with nitrogen donors and that can function as ligands will be examined. This aspect of the program will uncover a new aspect of borane chemistry and yield routes to new types of lanthanide boranes. Lanthanide-transition metal complexes can be or can serve as precusors to electronic, superconducting, and magnetic materials. In addition there are a number of commercially important catalysts that contain both types of metals. Nonetheless, complexes containing both lanthanide and transition metals are not common. This project aims at extending the number and types of compounds that contain these types of metals joined to each other in unique large `arrays,` designed to be logical forms from which the materials or catalysts mentioned above may be obtained.